Travel: NSF Student Travel Grant for 2026 IEEE International Symposium on Performance Analysis of Systems and Software (ISPASS)

The IEEE International Symposium on Performance Analysis of Systems and Software (ISPASS) is a premier forum for sharing advanced academic and industrial research focused on performance analysis of computer systems and software, and brings together researchers from the computer architecture, systems and applications software, and performance analysis fields. The conference will be held from April 26-28, 2026 in Seoul, South Korea.

This award will offer a great educational opportunity for students attending ISPASS 2026.
Students will have an opportunity to learn about the recent advances in their research field via attending technical sessions and tutorials. The main conference program generally consists of paper presentations, a poster session, and two keynote talks. There will also be two to four tutorials and workshops focusing on performance and power analysis tools and emerging applications. Through these sessions and discussions, students will gain exposure to cutting edge research ideas and methodologies. In addition, networking opportunities during workshops, tutorials, and social events will allow students to interact with senior researchers and industry practitioners, helping them develop professional connections and deepen their understanding of the field.